Mathematical Problems in Low Frequency Electromagnetic Inversion and in Inverse Scattering in Random Media

We consider theoretical and numerical studies of two inverse problems:
(a) Low frequency electromagnetic inversion, where we seek unknown
coefficients (electrical conductivity/permittivity) in elliptic
systems of equations, inside a bounded domain, given the Neumann to
Dirichlet map at the boundary. We explore the use of variational
principles in the solution of such problems. In particular, we wish
to develop new, variational reconstruction algorithms and to study
resolution limits (distinguishability). In numerical inversion, having
a proper discretization is paramount. We propose a finite difference
discretization of the problem, on optimal grids. We have demonstrated
that optimal grids give stable and efficient inversion algorithms, in
one dimensional (Sturm-Liouville) problems. We wish to study further
the optimal grids and to extend them to higher dimensions.
(b) Inverse scattering in random media, where we wish to image the
reflectivity of targets buried in clutter, which we model as a random
medium. We are interested in remote sensing regimes, with significant
multipathing (multiscattering) of the waves, by the inhomogeneities in
clutter. The proposed work starts with a close look at wave
propagation in random media and it strives to develop statistically
stable imaging algorithms, which give reliable images, independent of
one's lack of knowledge of the details of the clutter.

We consider theoretical and numerical studies of two inverse problems:
(a) The first problem considers the recovery of properties such as the
electrical conductivity and permittivity of a body, given measurements
of electric currents and voltages, or the electric and magnetic fields,
at the surface of the body. Because different materials display different
electrical properties, these problems are important whenever we wish to
infer the internal structure of a body, by gathering data at its periphery.
Examples of applications are: (1) In medicine: for detection of pulmonary
emboli, monitoring of heart function and blood flow, detection of breast
tumors, etc. (2) In environmental sciences: for detection of leaks in
underground tanks, monitoring of underground flows, etc. (3) Nondestructive
testing of materials: detection of corrosion, cracks and voids in metals,
etc. Our research focuses on using state of the art variational techniques
and optimal grids (parametrizations), to obtain efficient and reliable
recoveries of the unknown electrical properties inside the body.
(b) The second problem considers the detection and imaging of targets
in clutter, via active arrays of antennas (transducers) which send
probing signals in the medium and record the scattered echoes. Imaging
in clutter is not well understood, so far, but it has important
applications in ultrasound imaging, land or shallow water mine
detection, ground or foliage penetrating radar, etc. Our approach to
imaging in clutter is based on knowledge of wave propagation in random
media and it considers the development of statistically stable imaging
algorithms, which give reliable results, independent of one's
uncertainty of the clutter.